Quantitative Spectroscopy of Supernovae

The supernova explosion of a massive star provides a rich variety of information to us about the production of new heavy elements in the Universe. To interpret this information from spectroscopic and light variability observations requires an understanding of how various atomic ions are excited by both light absorbed from the supernova and collisions of electrons; this general subject is known as non-LTE physics. The PI has spent a year in Munich to adapt the world's most sophisticated non-LTE computer program for dynamic atmospheres of hot stars to the context of the supernova explosion problem. This work has resulted in an improved ability to compute synthetic spectra based only on input physics and to attempt to match these predictions with observed spectra. This work is expected to greatly improve our understanding the nucleosynthetic history of heavy elements both just prior to and during the supernova explosion. Eventually, this effort will lead to an understanding of the origin of the heavy elements (e.g. iron) that are major constituents of the Earth.